Logical Methods Applied to Complexity Theory

This project's goal is the development of a logical approach to the study of computational complexity. The approach will exploit two of the main traditions in mathematical logic, namely, (a) model theory and (b) proof theory. Model theory studies the relation between logical languages and their interpretations and has developed powerful techniques to answer questions about the expressive power of a variety of logical languages. Proof theory studies the notion of logical inference and elevates mathematical study. In so doing, proof theory makes it possible to undertake a rigorous examination of the complexity of establishing conclusions within a given system of inference. A significant feature of this logical approach is that it forgoes, to a large extent, the use of machine models of computation in the study of complexity. Much valuable work in complexity theory has involved careful analysis of the resource requirements of various algorithms on the specified abstract machines. This project seeks to obtain new insights into the complexity of combinatorial problems by analyzing these problems in machine-independent, logical terms. Among the questions considered are whether the polynomial time decidable properties of finite graphs are recursively enumerable and whether NP = co-NP. Negative answers to either of these questions would imply that P is not equal to NP. Though these implications are certainly significant, the focus of the project is to achieve a deeper understanding of the problems themselves by the use of logical techniques.